Engineering Research Equipment Grant: Shaker and Multi- Channel FFT Analyzer

Equipment is acquired to support research in nonlinear deterministic and stochastic vibrations. The equipment comprises a medium thrust shaker with a vibration control system and a multi-channel input/output Fast Fourier Transform analyzer. It is used to verify experimentally the theory developed in a number of projects.